Advanced Polymeric Materials: A Novel Processing Method for the Fabrication of Plastic Optical Fibers

This research is to develop a new method for the fabrication of plastic optical fibers that is applicable to various polymers including the ones which cannot be made into optical fibers by the conventional methods despite their excellent optical properties. The new method is, in a sense, a modified coextrusion process in which a thermoplastic material is spun into a hollow fiber forming a cladding while another material is fed into the core at the same time. In this process only the cladding material has to be thermoplastic and the core material can be any class of materials; a liquid, an elastomeric gel, or a thermoplastic. After the spinning, the core material may be polymerized or cross-linked to enhance the mechanical strength of the optical fiber. To assess the effectiveness and the applicability of the technique, a liquid monomer and a cross- linkable elastomer are used as the core of the optical fibers. The core materials are polymerized/cross-linked after the spinning process, and the quality of the optical fibers are evaluated. The most significant feature of the new technique is its broad applicability to numerous materials, thus opening the way to explore a variety of core material options for plastic optical fibers which could not be considered before by the conventional methods.